A Confocal Fluorescence Microscope for the Study of the Cytoskeleton

This is a group proposal to purchase a scanning laser confocal fluorescence microscope. The microscope will be the centerpiece of a new Shared Facility for Fluorescence Microscopy which will serve as the focus of the investigators' research projects and as the key element in a new laboratory course for undergraduates. Each of the six investigators studies aspects of the cytoskeleton in a developing system, focussing on the elucidation of cytoarchitectural remodeling and the organization of motile organelles. The goal of all of the projects is to utilize high resolution fluorescence microscopy to determine how the cytoskeletal components organize and re-organize during development. Because of the complexity, thickness, and optical opacity of the experimental systems used by the investigators (plant cells, sea urchin eggs and embryos, Drosophila embryos, leech nervous system ciliated protozoans), conventional immunofluorescence is often of insufficient quality for the studies. The problem is solved by the application of confocal fluorescence microscopy; this is clearly demonstrated in the preliminary confocal microscopy work by the investigators. Unfortunately, the existing instruments, located in other departments and which might be used for these studies, are heavily oversubscribed and costly. Thus, although the investigators are asking fascinating questions in excellent model systems and with highly specific tools, they are severely limited by a lack of equipment. The group of investigators is of the ideal size to share a microscope. And the microscope will prove to be a natural stimulus for the continued close interactions among these research groups. A second important feature of the proposal is that the confocal microscope will be utilized in the education and training of many students. Currently, among the six laboratories, there are 18 graduate students and 17 undergraduate students; these 35 students include 14 women, 4 African Americans, and 4 Asian Ameri cans. The projects described here will be performed by these students, and they will therefore be able to work directly with state-of-the-art equipment. A second exciting way the equipment will be utilized is as the centerpiece in a new undergraduate laboratory course, taught by the six investigators. The course will enable undergraduates to design, implement, and discuss mini-projects focussed on the cytoskeleton in developing systems using conventional and confocal immunofluorescence microscopy.